Travel Support for Fifth International Workshopon Mathematical Aspects of Fluid and Plasma Dynamics

9731084
Slemrod

This project will support the participation of researchers from
the United States at the Fifth International Workshop on
Mathematical Aspects of Fluid and Plasma Dynamics to be
held in Wailea, Hawaii from June 28 - July 3, 1998. The
objective of the workshop is to give researchers in the
mathematics of fluids, plasmas, stellar systems, and rarefied
gas dynamics the opportunity to present recent progress and
learn about new directions and tools. The conference will
focus on the following main areas of research:
magnetohydrodynamics, kinetic theory of gases and granular
flow, compressible and incompressible fluid mechanics, semi-
conductor dynamics, and numerical methods for resolution of
these problems. The workshop will bring together researchers
from the U.S., Japan, Canada, Australia, India, and Europe.